1998 Gordon Research Conference on the Interior of the Earth

9812037
Gurnis

The 1998 Gordon Research Conference on the Interior of the Earth, to be held June 28 - July 3, 1998 at
New England College in Henniker, New Hampshire, will address major unanswered questions about the composition, structure, and dynamics of the Earth's interior. There will be wide participation in the conference from a variety of perspectives including scientific discipline (geophysics, geochemistry, tectonics, and petrology), institution, demography, etc. Funds will be used to insure the broad participation of students and young investigators located far from New Hampshire.